Workshop on Effective Tools and Methodologies for Teaching Natural Language Processing and Computational Linguistics; Philadelphia, PA

The goal of this project is to bring together young and experienced college faculty to encourage scholarship in the teaching of computational linguistics. This would take place in a workshop on "Effective Tools And Methodologies For Teaching Natural Language Processing And Computational Linguistics" to be held during the annual conference of the Association for Computational Linguistics on July 7, 2002 in Philadelphia, PA. The workshop will enable new and prospective computational linguistics faculty to learn from their peers and to share resources related to teaching NLP and CL.